Presidential Young Investigator Award - Mathematical Modeling of Groundwater Transport in Complex Environments

The goals of this research center are to assess and improve the applicability of transport models in complex groundwater systems. The research will consider the impact of the spatial variability of aquifer characteristics on transport prediction and model validation, and the role of complex solution chemistry on model formulation and application.